Energy Budget of Earthquakes and State of Stress on Subduction-zone Megathrusts

This project proposes to develop a method to accurately determine seismic energy radiated from large earthquakes, and apply it to study the state of stress on subduction-zone megathrusts. Radiated seismic energy estimates provide an important constraint on the state of stress in fault zones. Unfortunately, the determination of radiated seismic energy is subject to large uncertainties, and estimates by different investigators can differ by more than a factor of 10. In particular, the values derived from teleseismic data tend to be smaller than those determined from regional data, which is believed to result from complex source processes and propagation effects. The research will improve the accuracy of energy determination using broad-band data from global networks and state-of-art methodology for computing synthetic waveforms for realistic source rupture models; both P and S waves will be used, since S wave carry more than 95% of the radiated seismic energy.